Scholarships for Academic Success

Baylor University's S-STEM program is awarding scholarships to full-time Engineering and Computer Science students who demonstrate both academic potential and financial need. A special effort is being made to attract academically talented students from community colleges and 3+2 partner institutions. These students are making use of special advising programs designed for transfer students. The project is making an impact in undergraduate computer science and engineering education in the region.